SBIR Phase I: AbGrab Laparoscopic Lifting Device

This SBIR Phase I project supports development of an innovative device for use in laparoscopy (minimally invasive surgery of the abdomen). Laparoscopic injuries most often occur during primary port entry, before visualization into the abdominal cavity is possible. Injuries are primarily to the bowel or vasculature and are very serious, with mortality rates up to 5% for bowel injuries and up to 15% for vascular injuries. To minimize this risk, surgeons lift the abdominal wall away from the vital organs that could be inadvertently punctured during primary port entry. Two lifting techniques are commonly utilized, but one is unreliable and the other invasive. The product in development utilizes suction instead of mechanical force to grasp the abdominal wall and is more reliable and less invasive than the current techniques. Projected benefits include better surgical outcomes, increased surgeon and patient satisfaction, and decreased patient post-op pain. Successful development of this product is forecasted to create 40 new jobs by 2023 with an annual payroll exceeding $2.5M. As a direct result of this Phase I grant, this innovative product can reach the U.S. market in 2019 and become the gold standard for abdominal wall lifting devices in the next five years.

The technical innovation in this proposed project is a novel abdominal lifting device for use in laparoscopic surgery that is more reliable and less invasive than current lifting techniques. The novelty of the innovation is affirmed with one issued patent and an additional pending patent application. The device takes advantage of existing suction available in every operating room. This suction allows for the non-invasive attachment of the lifting device to the abdominal wall. Current lifting techniques include manually grasping the abdominal wall and using perforating towel clips. Manual grasp does not always provide a secure grip and perforating towel clips invasively perforate abdominal wall tissue to provide a handle by which to lift and elevate. The technical goals of this project focus on creating a minimum viable product produced with biocompatible materials using standard good manufacturing practices for FDA Class I medical devices. Production quality samples will be produced with five different materials to determine which performs best in terms of strength, reliability, and flexibility. These samples will also be used to determine if any further design changes are needed prior to commercialization.